Crystals, level zero representations and the Littelmann path model

The project addresses questions in the representation theory
of affine Lie algebras and their quantum analogs. The
problems to be studied are motivated by applications to
mathematical physics and combinatorics. One of the goals of
the project is to make a rigorous connection between
combinatorial results on crystals and the corresponding
results on representations of the affine Lie algebra. This
involves studying the category of finite dimensional
representations of the affine algebra, the closely related
current algebra and the quantum analogs of these algebras for
generic values of the quantum parameter. This category of
representations is not semisimple and exhibits features
similar to modular representation theory. This is an
important motivation for the study of Weyl modules and of
extensions between irreducible representations of these
algebras undertaken by the project. The study of Weyl
modules and the conjecture on their dimension made by Chari
and Pressley is related to the conjectures of Feigin and Loktev
on the fusion product of finite dimensional irreducible
representations of a simple Lie algebra coming from their
study on conformal field theory . It is expected that the
results on the Weyl modules and their quotients the
Kirrillov/Reshetikhin modules will provide further insight
into and also lead to generalizations of the conjectures and
constructions of Feigin and Loktev. An important open problem
is to determine a character formula for the irreducible
finite dimensional representations
of the quantum affine algebras analogous to the Weyl
character formula. A first step is to study this problem for
the Kirrillov/Reshetikhin modules and the project pursues this by
seeing if a conjecture of Dorey made in his study of affine
Toda field theories is correct for these modules.

The representation theory of affine Lie algebras and the
quantum algebras is an area where there is intense research
activity. It has had significant impact on other branches of
mathematics such as number theory, knot theory, combinatorics
to name a few. It has had fruitful interaction with
mathematical physics, in affine Toda field theories, and in
solvable models in statistical mechanics where the tensor
product of representations of affine algebras conjecturally
describes the interactions or fusing of particles. The PI's
study should confirm some of these theories and also have
applications in the representation theory of affine Lie
algebras of positive level and vertex algebra constructions of
such representations.